Quantum Information Processing with Two-Dimensional Atomic Arrays

This ITR proposal supports a focused and coordinated effort over five years directed toward creating a 32 qubit quantum processor using individually addressable neutral Rb atoms trapped by laser beams on a two-dimensional lattice. It builds on recent very promising, but experimentally undemonstrated, theoretical concepts about manipulating the quantum coupling between atoms using lasers and highly excited atomic states. The team will use a reconfigurable atomic lattice defined by the beams from holographic optical elements. With a site to site spacing of 7 microns each qubit is individually addressable. Qubits are represented by hyperfine ground state levels and arbitrary state vector rotations are performed using laser pulses. The conditional two-qubit interaction that is needed for a complete set of logical primitives is achieved by exciting to a high lying atomic Rydberg level. A novel aspect of the implementation of these concepts is the exploitation of the dipole-blockade to allow massively sub-Poissonian loading of the qubit sites. The project is a collaboration between the Physics and Computer Sciences departments at The University of Wisconsin-Madison and the Electrical Engineering department at The University of Colorado Boulder.